SBIR Phase I: Shape memory polymer AAA Endograft

This Small Business Small Business Innovation Research (SBIR) Phase I project aims to develop endografts for percutaneous treatment of abdominal aortic aneurysms (AAA) using shape memory polymer (SMP) technology. This goal will be achieved by focusing on 3 features to evaluate the optimal design: fatigue, endoleaks, and endothelialization.

The availability of a shape memory endograft for patients suffering from AAA will have a significant impact on the morbidity and mortality associated with this condition.